Digital Government: Developing an Information Technology and Organizational Design Research Agenda for the Evaluation and Management of Research Proposals

EIA-0109049
Sharon Dawes
SUNY @ Albany

Digital Government: Proposal to investigate e-business transformation at the National Science Foundation

This workshop will examine today's information technology resarch status and products, and the variety of ways research granting institutions currently accomplish their missions. That examination will support an extrapolation of technology and organizational practices 5-7 years into the future, to consider how those coming technologies and practices might be employed in a granting institution's mission. Of interest also will be how the organization of such an institution might be constructed to best take advantage of those technologies and to ensure the appropriate injection of new technologies in achieving high effectiveness in the furtherance of its mission.